Pharmaceutical Engineering: A new graduate program to meet the needs of the pharmaceutical manufacturing industry

9523006 Somasundaran This award is for the implementation of a MS level educational and training program on pharmaceutical engineering in the Department of Chemical Engineering at Columbia University. It will provide tuition and stipend for three graduate students for three years. The pharmaceutical industry will provide similar support for additional seven students. This program is designed to meet the vital need of the pharmaceutical industry for engineers specially trained in modern processing and manufacturing techniques. Five new graduate level courses in different aspects of manufacturing of pharmaceuticals will be part of the curriculum. The curriculum will be developed with close cooperation between the Columbia University faculty and industrial partners. Adjunct faculty drawn from the pharmaceutical industry will participate in instruction and mentoring. A ten week industrial internship with faculty oversight will be a requirement. An advisory committee consisting of senior personnel from the pharmaceutical industry and academe will provide guidance and evaluation.